Interactive Resources Approach to Middle School Mathematics

9353039 Sturgeon The Satellite Educational Resources Consortium (SERC) is the developing and implementing a multifaceted series of interactive student resources and teacher material for middle school mathematics classes. They are designed for use in either the second semester of seventh grade or the first semester of eighth grade. The integrated package includes video programs (108 in number, each twenty minutes in length), on-going small-=group telephone conferences, and on-line computer networking for teachers. Emphasis is placed on problem solving and the materials anchored in real world situations. The units are built around interdisciplinary topics which include sailing, the music industry, architecture and sports, the airline industry, math in motion, oceans and atmosphere, medicine and health, photography, and the natural world. Each unit includes an exploration from among the following mathematical areas: patterns and functions; computation and estimation; algebra; statistics; probability; geometry; and measurement.